Presidential Faculty Fellow

9350363 Bergelson He will use bioengineering to study how genetic changes alter the ecological relationships of plants. Such repercussions of genetics on ecology underlie protocols of biotechnology risk assessment, and form the foundation of plant ecology %%% He emphasizes experimental design, theory and a mechanistic understanding of interactions in my teaching and research. ***